Student Travel to 54th International Conference on Electron, Ion and Photon-Beam Technology and Nanofabrication; Anchorage, Alaska; June 1-4, 2010

This award provides funding to support 20 graduate students to attend the 54th International Conference on Electron, Ion and Photon Beam Technology and Nanofabricaton 2010 to be held in Anchorage, Alaska, June 1-4, 2010. The conference is organized by the American Vacuum Society, the Electron Devices Society of the IEEE, and the Optical Society of America.

The opportunity provided by this funding will blend research and educational activities for the graduate students who attend. By participating in the conference, the graduate students will be exposed to state-of-the-art research topics and will interact with global academic and industrial leaders.